Courses and Development of a New Course in Analytical Scanning Electron Microscopy and Image Analysis

Students in geology and biology have been using electron microscopy for morphological studies of biological and geological materials. By adding a quantitative microanalysis system with digital X-ray and video image processing and analysis systems the students are being exposed to state- of-the-art analytical and image processing. A new course is being developed between the biology and geology departments to focus on the underlying theory and diverse applications of analytical scanning microscopy and image processing analysis. Students are receiving hands- on experience through extensive laboratory work. In addition students in mineralogy and petrology are doing new experiments that are made possible by the expanded system. The quantitative microanalysis software is making it possible for the students to do Bence-Albee analyses for geological samples and to do statistical and mathematical analyses for least-squares filter fit, intensity ratio calculations and multiple point analysis.